Research Experiences for Undergraduates in Chemistry at the University of Tennessee

Dr. John E. Bartmess and other members of the Chemistry Department of the University of Tennessee at Knoxville are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1995-97, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry -- organic, inorganic, analytical, and physical. A special feature of the program is a seminar and discussion groups on scientific ethics offered by Prof. Jeffrey Kovac, author of `The Ethical Chemist,` a set of cases and instructor commentaries.